Engineering Research Equipment: A High Performance Computing Research Environment for the Numerical Studies of Chemical and Biological Processes

Abstract - Kosanovich - 9622387 The Department of Chemical Engineering at the University of South Carolina will purchase on four processor Sun SPARC station 20 workstation and one three PSRC Xterminal which will be dedicated to support research in Chemical Engineering. The high performance computing environment will be used for research in the areas of process modeling, optimization, and system identification as applied to anaerobic fixed-film processes and semi-batch filtration processes. Specifically, it will be used primarily for two research projects: (1) nonlinear parameter estimation and optimum operability policy determination for a fixed-film biological wastewater treatment process and (2) system identification of a semi-batch filtration process. In addition, the computing environment will advance and improve the quality, and broaden the scope of research and education in the basic areas of process design, dynamic modeling, and optimization.